High-Temperature Microstructural Fences

9315755 Welsch Arrays of pinning centers (microstructural fences) are introduced to pin grain boundaries by introducing dopant below the surface by ion implantation. Bulk materials are created by laminating the implanted layered material according to desired patterns for achieving high strength materials. The research involves ion implantation, structural characterization by transmission electron microscopy, and mechanical testing. Several parameters are explored related to the fences that are created in the layers. These include implantation concentration, species, temperature, and post annealing treatment. Studies include bubble pinning point determination, bubble and grain growth kinetics, and grain size (related to Hall-Petch strengthening). %%% A benefit of this research could be creep-resistant metal alloys for high temperature use. Improved low-temperature fracture toughness could also be a product from the research. ***